Workshop on Nonlinear Processes in Dense Plasmas; Spring l988 (Physics)

The Workshop on Nonlinear Processes in Dense Plasmas will bring together the leading scientists in this area of science from the U.S. and the U.S.S.R. The topic is particularly timely, and is of importance to both countries. The workshop will make possible exchange of information and ideas, and will benefit the research programs of the two countries. The organizers are recognized as leaders in these studies.